Parallel Algorithms for Hierarchical Memory Multiprocessors

This project concerns the design and analysis of parallel algorithms on extended models of parallel computers. Abstract machines that accurately reflect architectural and operating system mechanisms of parallel computers need to be developed, and their impact on the design and the performance of parallel algorithms analyzed. Features to be modeled include hierarchical storage structures, parallel I/O subsystem organizations, and synchronization mechanisms. An appropriate paradigm addressing these issues is based on using partitioning algorithms with coarse-grained parallelism. This paradigm distinguishes between algorithmic and architecture related overheads, is amenable to quantitative analysis, and provides a framework for scaling solutions to fine-grained systems, as well as across models from shared-memory to loosely-coupled, distributed- memory systems. The project involves a systematic investigation of the paradigm, by appropriate modeling of parallel architectures, parallel algorithm design and analysis on these extended models, and validation on actual and simulated parallel machines.